Conference: 12th International Conference on Legume Genetics and Genomics (ICLGG 2026)

The 12th International Conference on Legume Genetics and Genomics (ICLGG 2026) to be held in Orlando, Florida, will bring together scientists, students, industry representatives, and other stakeholders from around the world to share the advanced research on legumes. Legumes, including soybean, peanut, common bean, chickpea, lentil, pea, cowpea, forage or cover crop legumes, play a vital role in sustainable agriculture, food security, and human and animal nutrition. Particularly, through nitrogen-fixing symbioses with soil bacteria, legumes reduce dependence on synthetic fertilizers, improve soil health, and contribute to more resilient agricultural systems. The conference will provide a premier international forum for researchers to share scientific discoveries. It will train the next generation of scientists and foster collaborations to accelerate innovation in legume crop improvement. The conference will inspire and promote the development and application of new technologies such as genomics, biotechnology, and the integration of artificial intelligence to improve legume crop productivity, nutritional quality, stress resilience, and environmental sustainability. The meeting will provide valuable professional development opportunities for students, postdoctoral researchers, and early-career scientists through scientific presentations, networking activities, and help establish new collaborations. The outcomes of the conference will advance scientific knowledge, strengthen the agricultural workforce, stimulate international collaboration, and support the national interest by contributing to food security, economic competitiveness, environmental sustainability, and scientific leadership.

As the premier international conference dedicated to legume genetics and genomics, ICLGG 2026 will convene researchers working in genetics, genomics, breeding, physiology, biotechnology, molecular biology, microbiology, bioinformatics, and related disciplines to address fundamental and applied challenges in legume biology and crop improvement. The conference program includes four plenary sessions, 16 thematic concurrent sessions, two featured workshops on Breakthroughs in Genomics Technologies and Global Legume Value Chain, and two poster sessions. Topics will encompass genome biology, evolution, plant–microbe interactions, abiotic and biotic stress resilience, epigenomics, phenomics, predictive breeding, data science, and translational genomics. The conference will highlight emerging technologies and approaches that are transforming plant science, including long-read sequencing, pan-genomics, single-cell and spatial transcriptomics, artificial intelligence-enabled phenomics, computational biology, and precision genome engineering. Through invited Plenary Talks, Session Keynote presentations, contributed talks, and selected flashing talks, poster sessions, workshops, and networking activities, participants will exchange knowledge, identify research gaps, establish collaborations, and develop future research priorities. The conference is expected to attract participants from academia, government, and industry, including a substantial proportion of students, postdoctoral researchers, and early-career scientists. Outcomes will include the dissemination of new scientific findings, enhanced international collaborations, expanded professional networks, and accelerated development of innovative strategies for legume crop improvement and sustainable agricultural production in the USA and worldwide. The conference will also explore the application of biotechnology, artificial intelligence, machine learning, advanced genomics technologies, and data-driven approaches to accelerate biological discovery and legume crop improvement.